Community College Workshop in Modes of Programming

The Community College Summer Workshop in Modes of Programming will provide community college instructors in Washington State who teach computer science and related disciplines with active experience with new models of computer problem solving that are supported by high-level languages or established software packages of high-level building blocks. The specific topics are Expert Systems Programming, Fourth Generation Language Programming, Graphics Programming and Object Oriented Programming. Both the selection of topics and approach are designed to support curricular evolution in the community colleges by providing exposure to material which, though advanced, can be integrated into the community college computing curriculum. In addition to NSF support, participants will contribute approximately an additional 15% toward the costs of the program.